FAW: Phonological Feature Interdependencies

Dr. Diana Archangeli will use a grant from the NSF Faculty Awards for Women Program to continue her research in phonological theory, the theory governing the sound systems of natural human languages. Atomic elements of phonological theory are binary features, which in sets characterize the nature of a sound segment. Several decades of research have fairly well established the inventory of such features in human languages around the globe. The number of features, however, is such as to permit many more combinations than there are actually possible sound segments in the world's languages. Therefore in this respect phonological theory is inadequately constrained. The aim of Dr. Archangeli's research is to explore the possible applicability of one fundamental constraint on feature combination which she has proposed, which she calls the "Grounding Hypothesis". The GH rests on the fact that although the features are abstract entities, they arise from and denote certain physical factors about deformations of the oral cavity in the process of speech. The GH states that all possible formal conditions on feature combinations follow from the physical content of the factor which the feature denotes. This is far from a self-evident proposition; in fact, it is controversial within the field. Dr. Archangeli, however, has devised a research program to subject the GH to empirical tests across a wide range of phenomena. Most immediately, the tests will involve studying the sound systems of a number of languages of Indonesia, which have interesting relevant phonological properties. She will then expand the research to other languages, and to implications in such areas as language change and language acquisition. Dr. Archangeli is a committed and successful teacher, who is achieving a strong reputation for the number and quality of graduate students studying with her. This FAW award will enable her to support some of these students and involve them directly in her research program.